Onset and Nanoscopic Consequences of Atomic Motion Induced by Electronic Excitation of Wide-gap Crystals

9510297 Williams The program combines femtosecond lasers with atomic force microscopy (AFM) to study the energy conversion of light into atomic displacements in bulk solids and surfaces. Time and space resolved detection of electronic excitation of insulator surfaces by induced change in chemical interaction potentials between the surface and the AFM tip will be investigated. Synchronized short laser pulses with the tip scan are expected to improve aspects of nanomachining with features that introduce chemical specificity into AFM. In addition, high energy, six electron-volt photon pulses of two hundred femtoseconds duration, are used to conduct ultrafast spectroscopy and supporting studies on technologically useful classes of materials that exhibit self-localization of excitations in pure crystals. Materials which have the additional technological advantage of being the best new fast scintillator crystals for high-energy electromagnetic calorimeters and medical imaging will also be investigated. %%% This is a multidisciplinary proposal which spans a broad area of research such as basic studies of the interaction of atoms with light in bulk solids and surfaces, photochemistry, micromachining, and medical imaging. The program combines femtosecond lasers with atomic force microscopy to study the energy conversion of light into atomic discplaments in solids and surfaces. The program has a strong university-industry component and provides opportunity for training students in the basic sciences as well as applied research. The core industrial research collaboration is with AMP Incorporated. ***